Computer Graphics and Scientific Visualization

This grant supports the enhancement and development of the computer graphics component of the computer science and engineering curriculum and provides the resources for the interdisciplinary interaction of computer science and the visual communications with the sciences for scientific visualization. The equipment includes graphics workstations for the development of visualization software and display of scientific-oriented imagery, input devices for digitizing 3-D models and images, and output devices for recording and disseminating results. The primary goal of this project is to use the tools of scientific visualization in the science curricula. This is done using an interdisciplinary approach including computer science for development of the graphics software, visual communications for composition and presentation, and physics, chemistry, mathematics, forestry, geography, geology, and biology for development of the problems. The College is also developing a program in visual communication skills which takes advantage of the visual skills of the Native American students. These special efforts may help retain and graduate more Native American students. These special efforts may help retain and graduate more Native American students. The institution is providing matching funds in an amount equal to or greater than the funds provided by the Foundation.